NSF Minority Postdoctoral Research Fellowship for FY 1998

This action funds an NSF Minority Postdoctoral Research Fellowship for 1998. This fellowship supports research and training in the area of biotic surveys and inventories. The research and training plan is entitled microorganisms in carbonate deposits identified with ribosomal RNA gene sequences amplified directly from environmental samples. Using PCR, microbial 16S ribosomal RNA genes are being amplified from environmental samples from carbonate deposits. Phylogenetic analysis of these rRNA sequences is being used to determine the evolutionary relationships of the principal constituents of these communities with known organisms. Hybridization probes will be developed to determine the morphology, abundance and distribution of selected organisms in situ.